Transitions: A Study of the Spatial and Temporal Transition of Climate and Ecosystems in the Circumpolar Arctic

Abstract OPP-9732126, 9732461 CHAPIN, LYNCH UNIV. ALASKA, UNIV. COLORADO This project is designed to test the primary hypothesis that the surface energy and moisture exchange between atmosphere, ecosystem, snow, permafrost, and soil is the principal mechanism for coupling the land surface to the climate on seasonal to decadal timescales. Understanding the characteristics, mechanisms and feedback processes of this exchange is necessary to incorporate their effects into predictive tools for pan-Arctic climate change. This proposal will take a comprehensive view of the study of the land surface energy and moisture budgets, involving collection of field data, detailed data analysis, model development, and spatial and temporal extrapolation. The PIs plan to integrate the field work closely with the simulation work, and investigations of ecosystems and physical climate systems are undertaken together.